STTR Phase I: Surface Plasmon Enhanced High Efficiency Near-field Probes

0340259

This Small Business Technology Transfer Phase I research project will develop near-field
scanning optical microscopy (NSOM) probes with dramatically increased transmission efficiency
that will lead to increased spatial resolution and higher scan speed. High transmission
efficiency will be achieved by incorporation of newly discovered near-field surface
plasmon affects. NSOM probes using surface plasmon enhancement will have 2-3 orders of
magnitude higher transmission than existing probes, allowing faster scanning speeds as
well as better spatial resolution. A combination of first principles modeling and nanofabrication
of test structures in Phase I will provide proof of concept as well as a guide
for Phase II optimization.

This program will push the fundamental scientific understanding of near-field
optics while simultaneously enhancing the capabilities of commercial NSOM metrology
instruments, which have wide applicability in nanotechnology development, lithography and metrology.
Plasmon optics have potential applications to a broad range of areas where high efficiency and subwavelength sizes are required including the integration of optics with microelectronics, spatial and spectral
optical multiplexing, and data storage applications.